VIGRE: Vertical Integration of Research and Education in the Mathematical Sciences at the University of Wisconsin-Madison

9819788
Brualdi
The Department of Mathematics of the University of Wisconsin-Madison
has a tradition of excellence in graduate education that goes back
more than 100 years, successfully training more than 900 PhDs in
Mathematics who now occupy important positions in universities and
industries throughout the USA and indeed the world. For more than 25
years it has had a successful postdoctoral program (the Van Vleck
program), with more than 80 Mathematics PhDs continuing their
training in research and instruction under the mentorship of
established researchers and educators. Our proposal seeks to
sustain, strengthen, enhance, revise, and integrate the five areas of
mathematics education at UW-Madison: (1) Mathematics Undergraduate
Education, (2) Applied Mathematics, Engineering, and Physics
Undergraduate Program (AMEP), (3) Mathematics PhD Program within the
Department of Mathematics, (4) Applied Mathematical Sciences
Interdisciplinary Program within the Center for Mathematical Sciences
(GPAMS), and (5) Postdoctoral Training in Pure and Applied
Mathematics.

Our primary goals are (1) to broaden the mathematics education of
undergraduate and graduate students, and postdoctoral fellows so that
they will be able to (a) interact and communicate effectively with
scientists and engineers (b) carry out mathematical research at a
very high level, and (c) appreciate the role of computing in the
mathematical sciences and, when appropriate, perform computations;
(2) strengthen our traditional undergraduate, graduate, and
postdoctoral programs in core mathematics, and (3) decrease the time
to PhD degree to an average of 5 years or less. The components of
our proposal integrate research and education in pure and applied
mathematics, at the undergraduate, graduate, and post-graduate level
in order to train mathematical scientists capable of handling the
above noted tasks.
Highlights of our new initiatives include:
1. Laboratory Components of Undergraduate Courses A laboratory component in one or more courses will be developed that will clearly illustrate the successes and limitations of Applied Mathematics Modeling of physical problems. The experiments would be demonstrations carried out to clearly illustrate points and not to train students for experimentation. Potential courses for such a component are: Applied Dynamical Systems and
Chaos, PDEs, Introduction to Applied Mathematics, and undergraduate and graduate Fluid Mechanics.

2. Integrated Undergraduate, Graduate, and Faculty Research Lab in Spatial Systems\noindent Individually and in groups, students will study various spatial systems (mostly on lattices) from combinatorial and probabilistic perspectives, with some use of computer simulation. Research questions that arise in faculty and postdoctoral fellowsresearch will be described to students who investigate these and other questions that surface in their course of investigation. This Lab will meet in late afternoon, and we shall seek out one or two bright high school students as possible participants, e.g. students from local high schools who are among the winners of the Wisconsin Math., Engin., & Science Talent Search.

3. Mathematics PhD Program and GPAMS. With the effective use of VIGRE
funds, we will:
(a) Recruit quality American graduate students with offers of
traineeships (VIGRE fellowships and Teaching Assistantships);
(b) Provide graduate students with a quality graduate program,
including interdisciplinary training that giving experience
in solving practical mathematical problems;
(c) Reduce the time-to-degree by targeting substantial fellowship
money on a small group of students who have the potential of becoming
research mathematicians at top universities and labs.
Cognizant of the fact that many graduates do not work in academic
settings, we plan to widen the scope of the current Mathematics PhD
program in the Department of Mathematics, supplying our graduate
students with the necessary experience in solving practical
mathematical problems. To these ends, we are planning to start an
Applied Mathematics Consulting . This would take the
form of nonstandard graduate courses for mathematics graduate
students whose main goal is to set up interdisciplinary cooperation,
at a research level, between mathematics graduate students and
researchers in other fields at the University. Students would take
this two-semester course in their second year, supervised by a
faculty member in the Department of Mathematics, with the help of
post--doctoral fellows funded through VIGRE. The goals of this
project are to foster new connections between researchers in
mathematics and other disciplines and to encourage interaction
between mathematics graduate students and faculty in other
disciplines.

4. Post-Doctoral Training ProgramOur post-doctoral program - the Van Vleck (V^2) program has attracted some of the best recent PhDs: each V^2-postdoc has a faculty mentor for both research and teaching, and teaches two courses a semester. They collaborate with faculty, work with PhD students, participate in seminars, and teach elementary and advanced
undergraduate courses and, at least once, a graduate course. The
V^2--program is an extension of our graduate program providing
continuing (collaborative) research and teacher training for new
PhDs.

We will extend and strengthen our postdoctoral program, to
include a Vigre Van Vleck component, the V^3--program. We propose
to award several V^3--postdocs. The post--doctoral fellows will
provide essential mentoring to the graduate students with
interdisciplinary postdocs mentoring students in GPAMS. The
interdisciplinary post--doctoral fellows will also participate in the Applied Mathematics Consulting Program previously described.
V^3--postdocs will be supported in part by regular teaching duties
(one course each semester). They will be: (1) mentored by local
faculty, develop an independent research program, and improve
teaching skills; (2) develop communication skills through
presentation of research seminars, including one colloquium talk for
a general audience; (3) prepare papers for publication in
professional journals; (4) prepare a research proposal for
submission to a funding agency at the conclusion of her or his
appointment.

As part of our VIGRE program, we will, in addition, develop several new undergraduate and graduate courses, including a Mathematics College Teaching Course (How to teach Math at the College level).

Funding for this award is provided by the Division of Mathematical Sciences
and the MPS Directorate's Office of Multidisciplinary Activities.